Superconducting Wiggler Insertion Device for X-Ray Studies with the Diamond-Anvil Cell At Ultra-High Pressures

This award provides funds required to upgrade the instrumentation and to support in part the operation of beamline X17C of the National Synchrotron Light Source at Brookhaven National Laboratory. The beamline is a source of highly brilliant radiation resulting from the accelerating action of a superconducting magnetic wiggler on charged particles and provides access to the radiation for earth science experiments. The beamline is scheduled for operation by June 1989 and will make available, for the first time, a dedicated source of high- brilliance X-rays for diamond-anvil cell research in the earth sciences. The ultra-high pressures needed in order to reproduce conditions in planetary interiors can be generated in diamond- anvil cells, but the volume of matter involved is extremely small (on the order of cubic microns). In order to characterize the material subjected to these intense conditions it is necessary to use the finely collimated and intense radiation available only at synchrotron facilities. The beamline will serve as a versatile instrument for the advancement of state-of-the-art technology for X-ray diffraction with the diamond-anvil cell. It will significantly extend both the pressure and the temperature ranges of ultra high-pressure studies (above 2 million atmospheres and 5000K) aimed at explaining the properties of deep planetary interiors.